Ecological Studies of Paraguayan Foragers

This project involves the continuation of a long-term ecological study of Amerindian foragers living in Paraguay. Two anthropologists and their students from the University of New Mexico will spend fifteen months in the field collecting data to test a set of hypotheses about group size and mobility; post-marital residence patterns; the frequency of individual hunting trips; and divorce rates over time. The data produced will advance our understanding about Amerindian life and adaptation to the natural environment, will help produce a full-scale ethnography of this society, and provide an important comparison to the few other detailed forager ethnographies that are available. This sort of study is important because foraging societies are disappearing at a rapid rate, so opportunities for direct observation will not be possible in the near future.